The Incorporation of Rare Earth Elements in Coral Lattice: Proxy for Rainfall and Climate

9616645 Sholkovitz One of the tasks facing geochemists interested in understanding how Earth's climate has changed over time is the discovery and development of tools (paleo-proxies) for deducing what past climates were like. Paleo-proxies are generally some sort of paleontological (for example, fossil forminifera) or geochemical measurement (for example, oxygen or carbon isotopic composition) that is assumed to relate to the climatic phenomenon of interest - temperature, salinity, oxygen, atmospheric carbon dioxide. The problem is that the proxies themselves are usually not the result of any one of these paleoclimatic conditions and thus lead to equivocal interpretations about ancient climatic conditions. In this project, the principal investigator will used archived modern coral samples collected from various regions for which there is also an extensive database of environmental observations such as temperature, salinity, runoff hydrology, and biology. Since rare earth elements (REE) are supplied to the ocean by weathering of rock exposures on the continents, he expects to see the REE signal from river runoff - reflecting rainfall conditions - preserved in the coral. If successful, he would be able to extend this study to much older corals form the geologic record and comparison with other currently-available paleoclimate proxies. The investigator anticipates that this would lead to the development of a new tool for studying paleoclimate. ***